Development of a Neodymium-Like Soft X-Ray Laser

This is an SBIR Phase I award for development of a neodymium-like soft x-ray laser. The Nd-like isoelectronic sequence of high Z elements could provide the basis for a soft X-ray laser. If successful, coherent radiation around 70-100 Angstroms would be available to the larger scientific community. The development of an X-ray laser of this type would permit advances in many areas of science and engineering. These areas include photobiology, crystallography, materials research, and x-ray lithography.